CEDAR Science Steering Committee 2012-2014

This project will support the activities of the CEDAR Science Steering Committee (CSSC) over the period 2012-2014. The CEDAR program supports research into the Earth's upper atmosphere with an emphasis on how material, momentum, and energy are transported through different atmospheric strata and across latitudinal and local time boundaries. CEDAR research also has important Space Weather and global change overtones. The CEDAR community meets annually, and the attendance at the CEDAR Workshop is of the order of 300. The participation of undergraduate and graduate students as well as of young professionals at the workshop is strong, and the CEDAR program has helped to launch the career of numerous individuals into the fields of aeronomy and space physics. The CEDAR Workshop in particular and the direction of the CEDAR community in general are planned by the CEDAR Science Steering Committee, working in conjunction with Program Directors from the NSF. Specific actions of this committee include the organization of the Workshop and an associated luncheon meeting, participation in another meeting in the Fall at the NSF in Arlington, and the publication of a newsletter, the CEDAR Post, which appears approximately semi-annually.